Symposium: Invertebrate Neuromuscular Organization: Peripheral Contributions to Behavioral Variability; December 27-30, 1993; Los Angeles, CA

ABSTRACT: 9314588, PI-Satterlie: This action is to provide travel costs for scientists to attend a special symposium at the Annual Meeting of The American Society of Zoologists on December 27 30, 1993. The symposium will consider invertebrate neuromuscular systems, and especially how variability in their cellular and developmental organization is reflected in behavior. This is an important topic that is important to both general and comparative neurobiology. The symposium will be important for synthesizing new data and suggesting new insights into how the brain controls movement. The lectures will be published in a special issue of the journal "American Zoologist". All of the scientists receiving support are American scientists, who will be speaking at the symposium and contributing papers to the final publication.